REU: Support for Undergraduate Research in the Biological Sciences

This is a Research Experiences for Undergraduates project. It will provide research experiences for ten students at Hope College. Students will participate in projects involving ecology, behavior, laxonomy, thirst regulation, tropical plants, and prey selectivity among tropical birds.